RUI: Radioactive Nuclear Beam Physics with Undergraduates at Hope College

The Hope College Nuclear Group is involved in research with the Radioactive
Nuclear Beams (RNB) available at the University of Notre Dame (ND), the
National Superconducting Cyclotron Laboratory at Michigan State University,
and the BEARS facility at Lawrence Berkeley Labs. With this proposal, the
Nuclear Group will continue to apply the expertise developed over many years
of work in traditional areas of nuclear reaction studies and our recent
experience with RNB to address questions about the behavior of the exotic
nuclei. Specifically, this project seeks to develop the disciplines understanding of
unstable nuclei. To do this measurements of various cross sections for a
variety of unstable particles will be made including: two- and one-neutron
transfer cross sections, near-barrier fusion-fission cross sections, and total
reaction cross sections. To facilitate these studies, we will develop a
variety of detectors (parallel-plate avalanche counters, neutron detectors and
electron multipliers). We will also continue our analysis of a previous
experiments and the preparation of other papers from past work.
Undergraduate students from Hope College will participate in all aspects of
the experiments: planning, detector development (including detector
fabrication and testing), detector and electronic setup, data taking,
off-line analysis, and modeling. Our experience over the years demonstrates
that undergraduate research enhances a student's education and better prepares
the student for graduate work or a wide variety of careers in either industry
or academia.